Analytic and probabilistic techniques in modern convex geometry

This award provided funding for the conference Analytic and Probabilistic Techniques in Modern Convex Geometry, to be held at the University of Missouri from November 7-9, 2015.

The conference focuses on recent developments in Analysis, especially the fields of random matrices, probability, and convex analysis. The confirmed participant list includes a number of leading researchers in the fields covered by this conference. The organizing committee will strive to make this funding opportunity known to target groups through mailing lists and advertisements in media maintained by professional organizations. More information will be available at http://www.bengal.missouri.edu/~pivovarovp/APTMCG.